Relativistic Electron-Photon Interactions in the Atomic Field

It is intended to undertake several related investigations into processes of high energy atomic
physics, including their extension toward lower energies. This involves studying the interactions
of photons and electrons with correlated atomic structures, including circumstances in which
there are several interacting continuum particles in the final state. These studies can yield
understanding of the role of relativistic, retardation and higher multipole effects in regimes
where they become comparable to or dominate the many electron correlation effects, and it can
lead to an identification of the nature of the correlation effects which persist at high energies.
Specific studies include: examining high energy behaviors of atomic processes, the extent to
which these behaviors follow from the singularities of photon and electron interactions, and the
extent to which they depend on correlations; understanding other global features of processes,
such as analyticity, also the trajectories of zeroes which serve as a surrogate for structural
information; clarifying the relations and transitions between classical and quantum behavior; and
studying the relationships among observables, partitioning, and entanglement. Other projects
include considerations of deficiencies in the description of basic processes, such as Delbruck
scattering and bremsstrahlung, and characterization of atomic processes (such as
photoionization, Rayleigh and Compton scattering and bremsstrahlung) and the independent
atomic information they contain.